Fluorocarbon Units in Synthesis

The focus of this research is development of new methodology for the synthesis of moderately complex monofluoro organic compounds which are useful for probing chemical and biological properties. The general use of four recently prepared fluorinated synthetic units will be investigated to determine their scope and applicability in the synthesis of fluorinated materials, including fluorinated nucleosides, fluorinated butenolides and furans, and fluorinated analogs of natural products. The synthesis of two new fluorinated units will be carried out: a chiral 1,3-oxazoline will be prepared for use in the synthesis of chiral 2-fluorocarboxylic acids, and two isomers of the 2-fluoromuconate system will be prepared for use in the inverse electron demand Diels-Alder reaction. %%% With this Renewal award, the Synthetic Organic Program is supporting the research of Dr. Timothy B. Patrick of the Department of Chemistry at Southern Illinois University at Edwardsville. Professor Patrick will focus his work on the development of new methodology for the synthesis of moderately complex monofluorinated organic compounds which are useful probes of chemical and biological properties.